Role of the Gsb and ciD-Ce Genes in Fly Development

Dr. Holmgren is studying the process of pattern formation within segments of Drosophila, and is particularly interested in the function of two gene clusters, gooseberry (gsb) and cubitus interruptus Dominant-Cell (ciD-Ce). He hopes to determine the role of the gsb, ciD and Ce genes in segmental pattern formation by studying their molecular function and their relationship to other segmentation genes. In his experiments,he will characterize the organization and pattern of expression of the ciD and Ce genes; make antibodies to the gsb, ciD and Ce gene products; determine the hierarchy of gene expression that leads to the formation of posterior structures within segments; and study the promoter regions of the gsb, ciD and Ce genes. By completing these experiments, he should understand how cells in the posterior part of the segment are distinguished from anterior cells. %%% Many animals are segmented. There is increasing evidence that some of the insect and vertebrate genes which control segmentation share homologies. The study of these genes in Drosophila is enhanced and facilitated by the extensive knowledge of genetics in this organism. The knowledge gained will most likely have more general relevance. %%%//